CAREER: The Mechanics of Web Handling

This CAREER proposal combines a research program on the fundamental
mechanics of web handing systems with two curriculum development projects.
The research development plan in web handling is motivated by the needs of
companies in many industries, including 3M, Kodak, Procter & Gamble, and SRS
Technologies, to better understand and more rapidly process thin, flexible
material. These handling processes produce a wide variety of products such
as carpet, fabric, shrink-wrap, diapers, and paper towel. Universal issues
that prevent more efficient operation-such as slip in wound rolls,
wrinkling, creasing, and vibration-will be studied. The fundamental
questions answered by this research will allow companies to more rapidly and
efficiently produce their products. The curriculum development plan has two
major thrusts. The first thrust will be the development of two unique
courses concerning the mathematical modelling of solids and structures.
These courses will expose students to modelling issues that occur in the
study of web handling systems and throughout engineering. The second thrust
will be an extensive overhaul of Penn States required undergraduate
vibrations course. One section will be combined with the optional
vibrations laboratory class. Additionally, the studio concept, combining
lecture, laboratory and recitation into one educational experience, will be
introduced. Along with traditional lectures, small teams of students will
use classroom computers to complete activities, allowing them to more
thoroughly learn the subject.